Dissertation Research: Female Mate Choice in Free-Ranging Rhesus Macaques

This research project will test a series of hypotheses about female mate choice among free.ranging provisioned rhesus macaques at Cayo Santiago, Puerto Rico. Specifically the researcher will look at female preferences for lower as opposed to high ranking males. This will be the first project to look at female mate preferences: earlier projects have centered on male choices. This project will help eliminate the cultural biases that have led many primatologists to assume that female mate choice only reinforces the selective effects of male.male competition. It will make female primates active participants in the reproductive process. An increase in our understanding of the range of adaptive reproductive strategies in primates will help physical anthropologists construct better models to explain primate and hominid evolution as well as increase our knowledge of primate social behavior.